Theoretical Nuclear Physics

In this proposal, theoretical models will be used to study heavy
collisions at various energies as well as nuclear reactions induced by
photons and other elementary particles. Using an improved
isospin-dependent transport model, that includes different dynamics for
protons and neutrons, collisions of rare isotopes at current
accelerators and the proposed Rare Isotope Accelerator (RIA) will be
studied in order to find the dependence of experimental observables,
such as the two-nucleon correlation functions and the yield of light
clusters, on the properties of nuclear matter with different proton and
neutron numbers. With a refined multi-phase transport model, that
includes both initial interactions among quarks and gluons and final
interactions among ordinary hadrons as well as the transition between
these two phases of matters, ultrarelativistic heavy-ion collisions at
the Relativistic Heavy Ion Collider (RHIC) will be studied in order to
identify the signatures of the produced quark-gluon plasma and to study
its properties through observables such as the collective dynamics of
produced particles, the electromagnetic radiations, the abundance of hadrons consisting of
multi-strange or heavy charm quarks, the suppressed production of
energetic particles, and the even-by-event fluctuations. Also,
effective hadronic models will be extended to study exotic pentaquark
baryons from photo- and hadron-nucleon reactions in the experiments
carried out at the Jefferson National Laboratory (JLAB) and elsewhere
in order to determine their properties and structures. The proposed
research will not only have direct impact on the research
programs at RIA, RHIC, and JLAB but also adds greatly to our
understanding of astrophysical phenomena such as supernova explosions,
neutron star properties, and of how matter is formed from the
primordial quark-gluon plasma during the evolution of the early
universe. It further offers young students and postdoctoral researchers
a broad research experience that includes methods ranging from quantum
field theory to statistical mechanics and involving both analytical
work and numerical computation. These experiences will prepare them
well for careers in either nuclear science or other areas to continue
their contributions to the scientific and technological advance in our
society.